COLLABORATIVE RESEARCH: Quantifying the effects of variable light and iron on the nitrate assimilation isotope effect of phytoplankton

Phytoplankton are microscopic, single-celled organisms that play an important role in the Earth’s ecosystems, elemental cycles, and climate. These organisms, which live in surface ocean waters, require sunlight and nutrients to grow and reproduce. In the oceans around Antarctica, nitrate (NO3-) as a nutrient source of nitrogen (N) is usually abundant while the nutrient iron is often sparse. Light availability also changes from complete darkness to 24 hours of constant sunlight, as well as from low light deeper in the water column to high, stressful light at the ocean surface. As a consequence, the phytoplankton in the Southern Ocean often live in a suboptimal environment in which conditions for growth are frequently changing. Scientists understand that nutrient supply and light availability affect these organisms and that these organisms, in turn, can alter the chemical composition of the seawater. For example, nitrate can occur in different forms, including a lighter (14N) and heavier (15N) form of NO3-, depending on which stable isotope of N is present in the molecule. Phytoplankton prefer to use the lighter isotope during uptake and incorporation into biomass, though the ratio of 15N/14N used by phytoplankton has been shown to vary depending on environmental conditions. Notably, the isotope ratio used by phytoplankton is recorded in sediments and can be used to determine both the historic composition of ocean waters and the productivity of phytoplankton. This project will test the hypothesis that enhanced light and/or iron stress change the isotopic ratios of water column nitrate- in specific ways. A combination of laboratory culture and field experiments will be conducted. Cultures of important Southern Ocean phytoplankton species will be grown under environmentally-relevant light and iron conditions where ratio of 15N/14N used by phytoplankton, physiological changes, and molecular markers of iron and light stress and nitrate assimilation will be measured. Similar measurements will be done in shipboard experiments on a cruise in the Southern Ocean with South African colleagues. These data will increase our understanding of past and present productivity in the Southern Ocean, and how phytoplankton changed the chemical composition of the seawater. Undergraduates from underrepresented groups in the STEM field and graduate students from Florida State University and Old Dominion University as well as students from South Africa will collaborate on this project. The improved process understanding of the N isotope effect will be presented not only at scientific national and international conferences but also during local outreach events at local K12 schools.

Interpretation of both modern water column nitrate (NO3-) isotopic ratio (d15N) measurements generated by GEOTRACES and other cruises, as well as metrics of paleo-nutrient utilization, depend upon a mechanistic understanding of the degree to which NO3- assimilation by phytoplankton discriminates against the heavier isotope, 15NO3- (NO3- assimilation epsilon). We currently lack the ability to predict how iron and light stress impacts the NO3- assimilation epsilon. The proposed work will test the hypothesis that enhanced light and/or iron stress elevates the epsilon for NO3-assimilation. This hypothesis will be tested by a combination of laboratory culture work and field work on a cruise of opportunity in the Southern Ocean. Mesocosm experiments will include both increasing and alleviating light and/or iron stress on monoclonal phytoplankton cultures and in natural phytoplankton communities while measuring the response of the NO3- assimilation epsilon. Water column samples will be collected on the cruise for analysis of dissolved and size-fractionated particulate N concentration and d15N, as well as phytoplankton community composition, photophysiology and gene expression markers of iron and light stress and NO3- assimilation. In particular, the expression of iron and light stress markers will be used to evaluate the relative contribution of iron and light stress to field-based estimates of the NO3-- assimilation epsilon. The results from these field measurements, together with lab-based culture studies, will be used to constrain the range of the epsilon for NO3- assimilation under environmentally-relevant light and iron conditions, including the potential alleviation of iron stress as has been hypothesized to have occurred during the last glacial maximum (a.k.a. the Martin hypothesis).